PYI: Application of Microelectronic Techniques to Biomedical Ultrasound and Acoustic Charge Transport Devices

The PI will develop Acoustic Charge Transport Devices (ACT). An Act device is a charge-coupled device in which the signal is a potential which propagates with a surface acoustic wave.